MESSAGES

9626949 Davidson The Museum of Science in Boston will develop an exhibit and other interactive activities "Messages". This is about communication. The focus of the visitor's experience will be exploring the many facets of human and animal communication including linguistics, psychology, sociology, sociobiology, cybernetics, information theory, and telecommunications. The activities will improve visitors general science literacy by helping them understand the nature of communication both as a subject that encompasses many scientific disciplines and as a scientific thinking skill. Three themes will be developed 1) Communication is an integral part of being alive; 2) The modes and media of community are many; and 3) Communication requires a sender and a receiver. In addition to the 1200 sq. ft. core exhibit, the museum will develop related kiosks that will be placed at various locations throughout the museum, public programs, and Internet-based activities. It will be designed for universal accessibility and is intended for a diverse audience with special attention to youngsters and people with few technological skills. Materials developed for teachers and students will address the Communication basic technology area recommended in Science For All Americans. Special emphasis will be placed on linking the content and formal educational and take-home materials with Project PALMS, the NSF State Systemic Initiative in Massachusetts.